User Centered Digital Library: Transforming Resources for Individual Preferences

Abstract
Transforming Resources for Individual Preferences

The WGBH National Center for Accessible Media (NCAM) proposes to embed the capacity to
transform and customize presentation of content based on individual user profiles within
WGBH's TEACHERS' DOMAIN, a K-12 library of rich-media science resources that support
standards-based teaching and learning. The project will enable teachers or students with
disabilities to locate accessible resources within all current and future collections offered by
TEACHERS' DOMAIN; identify what kind of content is being presented; determine if the content
will transform to fit their presentation preferences; and identify equivalent or alternative forms of
the content that better meets their stated preferences. The Center for Children and Technology at
the Educational Development Center (EDC) will evaluate the usability and effectiveness of these
resources with students with disabilities and their teachers.

Intellectual Merit of Project
IMS Global Learning Consortium (IMS) accessibility specifications have been developed by an
international working group comprised of leading learning companies, educational institutions
and standards groups. Specifications define a universally designed infrastructure for adaptable
learning systems and content that will respond to individual needs and preferences. TEACHERS'
DOMAIN will be the first-ever full implementation of IMS accessibility specifications embedded
in a complete set of classroom resources. It will provide a real-world model that promotes
accessibility as an essential design element that enables teachers and students to easily identify
accessible learning content. Evaluation research will identify potential impacts on teacher
practice and student learning and suggest areas to be explored in the future within large-scale
assessments using these permanent resources.

Broad Impact of Project
This project will result in a significant amount of accessible, high quality science resources that
serve science educators and teachers working with students with disabilities. The project will be
prominently profiled within major communities dedicated to technology and learning the
National Science Digital Library, the IMS Global Learning Consortium, the National Science
Teachers' Association and will utilize partner dissemination networks that regularly reach
organizations and educators that serve students with disabilities; science educators and
curriculum developers; state education systems and school boards; education-focused
professional organizations and trade groups; developers and purchasers of distributed learning
platform and resources; developers; and distributors and producers of educational multimedia.
The project will also serve as an international model of how digital libraries that utilize IMS
specifications can automatically respond to individual needs and preferences, paving the way for
improved learning experiences for all users. This will set a standard of accessibility that teachers,
students and administrators should demand from learning platforms and content providers.
Ideally, this will help catalyze demand for accessible learning platforms and appropriately tagged
resources. This outcome will greatly impact the ability of teachers to more effectively and
efficiently meet their students' needs for accessible and meaningful content. It will also greatly
impact the ability of students with disabilities to access and benefit from distributed learning
resources.